A Proposal to Connect the Nebraska State Colleges to NSFNET Network

Four state colleges within the State of Nebraska (Kearney, Wayne, Chadron, and Peru) will be linked to MIDnet and NSFnet. The connection will be at the University of Nebraska-Lincoln. Funding will include equipment and line charges for two years. This network builds an infrastructure in the State of Nebraska for four-year, technical, and community colleges at both private and public institutions. The libraries at these institutions will use this network to share resources between campuses